CAREER: Development in Innovative Optoelectronic Devices and Optical Characterization Techniques

9625236 Unlu We propose a research program in innovative optoelectronic devices and characterization techniques closely tied to educational efforts in photonics curriculum development. The research program focuses on high speed and high-efficiency photodetectors, critical components in optical communication signal processing and measurement systems. In parallel, research in near-field thermal imaging can yield a factor of 10 improvement over current techniques, providing important information for the design optimization of sub-micron devices and circuits. The educational component utilizes these research programs and others in creating modular photonics applications suitable for incorporation into the standard undergraduate engineering courses and upper-level laboratory settings. Photodetectors for today s high performance optical communication and signal processing systems must have high sensitivities, short response times, and low power consumption. Over the past five years a new family of optoelectronic devices has emerged whose performance is enhanced by placing the active device structure inside a Fabry-Perot resonant microcavity. Computer simulation studies have shown that a drastic improvement in the high-speed performance of conventional photodetectors can be achieved using the resonant cavity enhanced (RCE) detection. Since the RCE scheme is independent of material system operation at a variety of wavelength regions is possible. We propose to build on the mature theory and existing experience in the RCE detectors and to prototype high-performance ultrafast photodetectors operating at near-IA wavelengths. Also based on the RCE scheme, we propose to fabricate monolithic photodetector arrays sensitive to polarization of the incident light without requiring any external polarization filters and/or beam splitters. Sensitivity of discrete devices can be controlled by recessing the top surface of the detector allowing for the monolithic fabrication of detector ar rays with varying sensitivities to TE and TM polarizations. In parallel to our efforts in optoelectronic devices, we will also pursue innovative optical characterization techniques based on near-field optical microscopy. We have established a state-of-the-art near-field spectroscopy laboratory funded by NSF and industrial collaborators. The proposed nearfield microscopy research will emphasize diagnostics of optoelectronic devices and the development of a new thermal imaging technique utilizing nanopositioners and IR fibers. Boston University has made a major commitment to Photonics. The construction of a new interdisciplinary Center for Photonics Research with state-of-the-art facilities and advanced laboratories is underway. Recently, a new NSF-funded curricular program, PRIDE: Photonics Research in Interdisciplinary Education has started under the direction of the PI. The PRIDE program will create three levels of photonics modules to enrich standard core, specialized elective, and design courses of the upper division undergraduate and early graduate curricula. These modules will incorporate photonics research into a wide range of existing curricula, and demonstrate vertically integrated curriculum development. Modular implementation of photonics into existing courses represents a significant departure from standard curricular development. This novel approach reduces the barriers to entry for cross-disciplinary education, is inherently transportable while maintaining local flexibility of content, and incorporates photonics research into a wide range of different curricular topics. The PI's research program is an integral part of the PRIDE effort. His research advances in photodetectors and near-field optical microscopy will be incorporated into this modular curriculum. In addition to the group effort in curriculum development, PI will also continue to develop new courses in photonics and innovative teaching techniques utilizing World Wide Web. ***